Ataruq: Connecting Coastal Communities to Polar Research

The proposal has several interconnected elements that revolve around extending to a wider population existing efforts to improve science literacy in Native Alaskan groups, while simultaneously developing a framework for assisting Polar researchers to improve their communications skills. The twin tracks have a common goal of generally improving science literacy.

Another goal is to increase interaction between researchers and the general public.